Conference: Northeast Bioengineering Conference 2012, Philadelphia, PA, March 16 - 18, 2012

1202430, Obeid

Intellectual Merit
Rapid advances in engineering are facilitating an enhanced understanding of biology and providing novel transformative solutions to biomedical problems. The NEBEC will provide a multidisciplinary forum for dissemination of these advances in biomedical engineering at all levels, and will facilitate the sharing of knowledge across interdisciplinary barriers. The conference serves as an open forum for discussion of new directions, ideas and approaches in research and education. Furthermore, the conference provides a setting to reinforce existing contacts and to establishing new collaborations.
To support these goals, sessions will be organized covering a broad range of topics related (but not limited) to:
- Stem Cells
- Instrumentation
- Imaging
- Biomedical Design
- Biomechanics
The NEBEC has traditionally served as a platform for students to present their research and to obtain constructive feedback. This conference also provides an opportunity for students to discuss potential career choices with individuals from academia, government, and industry.

Broader Impact
The 38th NEBEC will have a broad impact for the Northeast bioengineering community and for engineering education. The knowledge shared at the conference by researchers from over 40 institutions in the Northeast will be captured electronically and broadly disseminated via abstract books, USB thumb drives, and the IEEE website. The conference’s emphasis on students, with multiple opportunities for them to present their work and discuss current obstacles to progress with leading researchers in an intimate setting, will better prepare them for careers in both research and industry. One of the main goals of the conference is to nurture exceptional students and to help develop an environment to support future leaders in the field. In addition, the exposure to research in diverse fields will help spawn innovations and create ground breaking bioengineering technologies and bench benefit the society at large.